Self-reversal in Titanomaghemite: Implications for the Magnetization of Oceanic Crust

Tarduno
EAR-0230230

Self-reversal of natural remanent magnetization, the remarkable
ability of some rocks to acquire a magnetization in a direction
antiparallel to that of the Earth's geomagnetic field, is thought to
be rare; it has been established only in a few igneous rocks bearing
hemoilmenite. The investigators have have found two pervasive, nearly
antipodal
components of magnetization (revealed through detailed
demagnetization studies) from pillow basalts in which hemoilmenite is
absent. Laboratory thermoremanent magnetization experiments suggest
that the component
isolated at lower temperatures represents a partial self-reversal of
the primary magnetization. This self-reversed magnetization is
carried by titanomaghemite formed by low temperature oxidation.
Because maghemitization of ocean crust is ubiquitous, partial
self-reversals may play an important role in controlling changes in
marine magnetic anomaly amplitudes with age.

the investigators propose to investigate the extent and mechanism of
self-reversal carried by titanomaghemite in oceanic basalt recovered
by the Deep Sea Drilling Project and the Ocean Drilling Program.
Through a
study of sites having ages ranging from recent to 170 Ma, they hope
to constrain the time scales of acquisition of self-reversed
magnetizations. Techniques to be applied will include paleomagnetism,
rock magnetism, x-ray diffraction, microprobe, scanning electron
microscopy and transmitted electron microscopy. The work proposed
will support a Ph.D. thesis and the studies of several undergraduate
students at theUniversity of Rochester.
--